U.S.- Chile Program: Numerical Simulation of Exitaxial Growth

9400310 Schuller This Americas Program award will support Dr. Ivan Schuller of the University of California, San Diego, in a theoretical-experimental collaboration in the field of magnetic thin films, with Prof. Ricardo Ramirez of the Universidad Catolica, Santiago, Chile. The studies proposed are geared towards understanding thin film growth in a quantitative fashion. From the experimental point of view thin films and interfaces will be characterized using several growth techniques and a large variety of structural and chemical characterization techniques. Prof.Ramirez has been conducting theoretical studies of thin film growth in Chile, while Dr. Schuller has an experimental program in the same field underway in the U.S. This award will allow coupling of both programs. The area is of importance to researchers working in technologies requiring thin films and multilayer film metallic growth and characterization. These include the magnetic recording industry, sensor technology, and new technologies growing out of giant magneto- resistance phenomena. ***